Colloid-Filtration Theory for Vadose-Zone Systems

0409174
Saiers

Knowledge of processes that govern the transport of colloid-sized particles through the
vadose zone is required to predict the movement of sorbing contaminants within soils, to assess
the risks associated with the entry of pathogenic microbes into drinking-water aquifers, and to
estimate the time scales for soil illuviation and soil-profile development. Colloid deposition at
air-water and solid-water interfaces plays an important role in controlling the transport rates and
porewater concentrations of colloids in the vadose zone. Despite the importance of colloids in
vadose-zone processes, a theory suitable for predicting colloid deposition in unsaturated porous
media does not exist.
The focus of this proposed research is to take steps towards filling this gap in knowledge
by defining, in a quantitative way, the fundamental relationships between colloid-deposition
kinetics at air-water and solid-water interfaces and the physical properties of the soil-water-colloid
system. These relationships will be derived through analysis of a suite of pore-scale
simulations of water flow and advective-diffusive colloid transport through partially saturated
void spaces. Modern models for air-water configuration in variably saturated porous media will
be used to specify the geometry of the porewater domains for which the pore-scale simulations
of colloid transport will be conducted. Regression analysis of the results of the flow-and-transport
simulations is expected to yield power-law equations that express the rate of colloid
collisions with air-water and solid-water interfaces as functions of fluid-flow velocity, colloid
size and density, porous-medium texture, and capillary pressure (which controls water
saturation). Except for the need to account for the presence of the air phase, the proposed
approach for deriving the power-law equations for colloid-interface collision rates is
conceptually similar to published approaches used to formulate the colloid-filtration equations
for water-saturated porous media.
Predictions of colloid-deposition kinetics made with the power-law equations will be
compared with measurements of colloid deposition made in laboratory column experiments. In
these experiments, the sensitivity of colloid-deposition rates to variations in colloid diameter,
grain-size, grain-size distribution, porewater velocity, and capillary pressure will be examined.
Comparison of measured and predicted deposition rates will reveal deficiencies in the new
theory and help direct its refinement.
Findings from this study will advance current knowledge of mass-transport processes in
partially saturated geologic materials and substantially improve our understanding of key mass-transfer
reactions that affect porewater concentrations of colloids within the vadose zone. This
proposed research represents a first attempt at deriving and testing a colloid-filtration theory for
unsaturated porous media that is needed to make quantitative inferences regarding colloid
mobility in the vadose zone. Such a theory should make an important contribution towards
addressing critical water-quality issues of national concern that are related to the movement of
microbial pathogens and colloid-associated contaminants through near-surface environments.